Applied Space Environments Conference 2017; Huntsville, Alabama; May 15-19, 2017

This award provides for the meeting of space weather scientists and engineers in diverse areas relating to applied space environments. Topics that would be addressed particularly are measurements, models, testing, and tools for a range of different space weather environments.